The Chanka Archaeological Project

The Chanka Archaeology Project under the direction of Dr. Brian Bauer is dedicated to documenting and interpreting the development of
complex societies in the Andahuaylas region of the Peruvian Andes from AD 500
to AD 1532. The Chanka who once lived in the region are of special interest
to archaeologists and historians since they once rivaled and fought against
the Inca State for control of the central Andes.

The topic of early state development is a major theoretical issue of current
anthropological research. The Chanka have been excluded from these discussions
since very little original archeological research has been conducted in their
core region. What theories have been presented concerning the development of
the Chanka are largely derived from readings of the Spanish chronicles. Until
these models are tested against archaeological data they will remain
hypothetical and untested and the study of the pre-Hispanic social
organization of the Chanka can not advance.

The project, which will run for three field seasons, includes a systematic
archaeological survey of the Chanka heartland and an extensive review of
archival materials located in Peru and Spain. The survey will cover an area
of approximately 200 square kilometers and provide a comprehensive data base
on the location, size and age of archaeological sites in the Andahuaylas
Valley. The results of the survey will be used to address a series of
questions concerning the development of complex societies in the region. For
example: What effect did the conquest of the region by the Wari Empire (AD
550-1000) have on the indigenous populations?, Is there evidence of early
state development in the valley during the Late Intermediate Period (AD 1000 -
1400)? and, What was the social organization of the Andahuaylas area during
the period of Inca rule?

The archival research will take place in Cuzco, Andahuaylas, and Lima (Peru)
as well as in Seville (Spain). The historical research will support,
complement, and extend the archaeological field work by providing concise data
on specific sites and by procuring additional information on the land
holdings, populations, and social organization of Chanka kin groups.

In sum, the Chanka Archaeological Project will provide a regional context to
study the development of the Chanka and it will enable scholars to address
questions concerning the development of Chanka society before and after Inca
expansionism. The project will also enable researchers to make comparisons
between the development of the Chanka and that of other important groups, both
in the Andes and elsewhere in the ancient New World.